OPTION 1: Small-Business ERC Collaborative Opportunity for the transitioning of agile broadband transmitter for integrated access networks to market

Intellectual Merit

This Small-Business ERC Collaborative Opportunity transitioning agile broadband
transmitter for integrated access networks to market will address the challenge of achieving high
bandwidth (100+ Gb/s), low power, low cost wavelength division multiplexed (WDM) optical
communications links of distances up to 2 km for applications such as data centers and
aggregation networks. These links are necessary for next generation data center and
supercomputing applications that are a focus of the CIAN ERC’s research.
Specifically, this project will improve the lasers in these systems, which drive much of
the cost, performance, and power requirements for the links, to meet current commercial
specifications. The tunable VCSELs offer a 10X reduction in power and cost over conventional
solutions and enable high bandwidth links within data centers that not economically feasible with
current technologies.

Broader Impacts

The broader impact/commercial potential of this project is a drastic reduction in the cost
and energy requirements of optical links inside of data centers and supercomputers. Companies
such as Google, Microsoft and other large data-centric companies have been clamoring for this
type of product in the last year to maintain the rate of growth in their data center facilities.
Present WDM laser array solutions using DFB lasers require 10X the power and 10X the cost of
a VCSEL-based approach and are not economically feasible. Present 850-nm VCSEL-based
links, on the other hand, cannot be made into a WDM source without power-hungry TEC coolers
due to their lack of precise, gridded, wavelength control, limiting the overall link speed. Using a
1550 nm tunable VCSEL solves both the problem of gridded wavelength control and allows the
use of low cost single mode fiber and the developed infrastructure for 1550 nm WDM optical
links. The realization of tunable VCSELs in WDM systems will result in a 10X reduction in
both cost and energy requirements in high-speed optical links for data centers, enabling the
further scaling of computational power for next generation data center and supercomputer
applications.

Besides the technological impact, this collaboration program will offer CIAN students
insight and experience with the real world commercial product development process. The
students will be testing and giving feedback into the product development process, enhancing
their educational experience. The enhanced capabilities of the VCSELs will enable new
applications and enhance CIAN in it’s mission of supporting transparency wherever possible
with flexible wavelength conversion and optical switches, and supporting dynamically
reconfigurable heterogeneous traffic in the network.